A Summer Research Experience in Mathematics for Undergraduates at the University of Idaho

The six participating students will conduct independent research under the supervision of Professor Arie Bialostocki with the assistance of David Grynkiewicz, a former REU participant. The topics of research are: Erdos-type problems ranging from extremal graph theory, number theory to combinatorial geometry and problems in finite groups, in particular permutation puzzles. Additional aspects of the program are enhancing the mathematical writing and presentation skills of the participant and the exploration of a variety of careers in mathematics, especially choosing a graduate school. On the lighter side of the program there will be recreational activities like socializing, hiking, movies, plays and concerts. Each participating student will receive a stipend of $3,200 and free single room housing on campus. More details appear on www.its.uidaho.edu/reu. The email contact is [email] or phone (208) 885 -6742.